Local Structure of Substituted High Tc Superconductors

A series of X-ray Absorption Fine Structure (XAFS) experiments is proposed, to measure the local structure about substituted atoms in high-Tc superconductors. Such experiments should furnish significant help in understanding the unique role that copper plays in these materials. In addition, they propose preliminary experiments on single crystal or oriented films and substituted- materials using the high polarization of synchrotron radiation to enhance the amplitude of the XAFS signal for particular bond directions.